Interactions of combinatorics and physics

Physics can be a rich source of interesting open problems at the interface of combinatorics and algebra. This project aims to use combinatorial techniques to address questions from various fields of physics. In statistical physics, this project concerns the relationship between the asymmetric simple exclusion process (ASEP) and important families of polynomials in algebraic combinatorics, including interpolation polynomials, Macdonald polynomials, and Koornwinder polynomials. The ASEP has been used as a model for traffic flow and translation in protein synthesis, and is connected to the quantum transverse XY model. In quantum field theory -- more specifically scattering amplitudes in N=4 super Yang Mills theory -- this project aims to study the combinatorics of the amplituhedron, a geometric object whose "volume" computes scattering amplitudes, which measure how massless particles interact. And in mirror symmetry, this project aims to use the recent polytopal mirror statement of the PI and Rietsch, as well as the technology of cluster algebras, as an ansatz to construct a mirror for interesting varieties such as positroid varieties in the Grassmannian.

The PI's research on the ASEP has potential applications to quantum information science as ASEP provides a rich integrable system whose algebraic and statistical properties make it a valuable tool for studying quantum many-body phenomena, entanglement, and non-equilibrium dynamics. In addition, the PI is one of the four editors of the ongoing initiative "First Proof," which aims to provide objective assessments of the ability of AI models to prove specified mathematical statements. The PI also uses problems from her research on the ASEP as part of the First Proof batch of challenge problems. Finally, the PI will continue to train the next generation of mathematicians as part of this project.